Germ Cell Proteins Influence Sertoli Cell Function

The objective of this research proposal is to test the hypothesis that specific types of germ cells in the testis produce proteins that stimulated Sertoli cell function. Pachytene spermatocytes and round spermatids are isolated by centrifugal elutriation and the purified populations of germ cells are incubated for 24 hours in vitro, after which the conditioned media is collected. These germ cell proteins are dialyzed, concentrated and lyophilized. Sertoli cells are grown in vitro on Matrigel coated filters mounted i a novel bicameral culture chamber system that mimics to a large extent the growth of these cells in vivo. Using the concentrated germ cell proteins it will be possible to 1)show that metabolically labeled germ cell proteins are specifically bound and sequestered by Sertoli cells 2) demonstrate that germ cell proteins stimulate the secretion of several specific immunopreciptiable Sertoli cell proteins 3) using ELISA for transferrin secretion from Sertoli cells it will be possible to purify the germ cell stimulatory protein by liquid chromatography and raise antibodies to the protein for future functional studies. These studies will provide a significant insight into the paracrine interactions between germ cells and Sertoli cells in the testis. Furthermore, purification of the germ cell paracrine protein and production of its antibody will provide probes for elucidation of the mechanisms that locally regulate differentiation and development during spermatogenesis. %%% The maturation of sperm cells in mammals requires the interaction of these cells with surrounding cells. This study will elucidate the mechanisms of some of those required interactions.